Computer Modernization and X-ray Generator

Single crystal x-ray crystallography is the most powerful analytical method for structure determination of solids. In synthetic inorganic, organic, bioinorganic and organmetallic chemistry, single crystal x-ray diffraction is an invaluable tool to characterize molecular structure. The information gained from the knowledge of the molecular composition and structure helps to develop new reactions of potentially general interest in catalysis or synthesis. This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at the University of Louisville acquire an upgrade of their computing facilities and the x-ray diffraction laboratory. Among the areas of chemical research that will enhance by the acquisition are the following: 1. Sulfur Chemistry within a Sulfidomolybdenum(v) complex 2. Dinuclear Iron Complexes of Polyimidazole Ligands 3. Molecular Recognition: The Electrostatic Factor 4. Bimetallic Complexes with Bridging Oxygenates 5. X-Ray Studies on Peptides and Pseudopeptides 6. Single Crystal and Powder X-Ray Diffraction Studies of Mineral Structures.